Groupoids and the Geometry of Gauge Groups

9803593
Brylinski
J-L. Brylinski will continue his work on the geometric structures
occurring in mathematical physics, particularly in gauge theory, loop
spaces, and moduli spaces of vector bundles. Gauge groups are of
fundamental importance in modern geometry. The gauge groups on a
circle are loop groups, and gauge groups in dimension 2 are closely
related to conformal field theory. Brylinski will study certain
cohomology classes he has constructed for gauge groups, which are
natural generalizations of the degree-two cohomology class giving the
central extension of a loop group. These classes are obtained by a
transgression process from the Chern-Simons classes and the Chern
classes of Beilinson. The first new example is that of a degree-three
cohomology class in the gauge group of a closed surface. Brylinski
has shown that these classes obey reciprocity laws that generalize
those of conformal field theory. He will investigate to what extent
they are related to higher-dimensional field theories. He will study
the Kaehler geometry of moduli spaces of vector bundles, continuing
his work with P. Foth, and intends to study the geometric quantization
of these moduli spaces. Brylinski will also continue his work on the
Quillen metric on determinant line bundles, which should lead to
methods to compute it geometrically, as opposed to analytically, in
many situations. Here he will use both the differential geometry of
gerbes that he developed and a variant of Deligne cohomology he
introduced, which incorporates hermitian metrics. Brylinski will
continue his investigation of the differential geometry of the space
of knots in a smooth three-manifold, which he previously showed is a
Kaehler manifold, more precisely a union of coadjoint orbits of the
group of unimodular diffeomorphisms. A particular object of study
will be the structure of various Lie algebras of functionals with
respect to the Poisson bracket.
The research of J.-L. Brylinski is concerned with the interface
between geometry and mathematical physics. This interface has been
growing steadily in the recent past and has had profound consequences
for various branches of geometry: algebraic, differential, and symplectic,
among others. For instance, Edward Witten (School of Natural Sciences,
Institute for Advanced Study) interpreted the Jones polynomial
for knots in terms of field theory in three dimensions connected to
the Chern-Simons class. Also, Verlinde derived a formula for
Riemann-Roch numbers of a line bundle over a moduli space of bundles
over a Riemann surface, using ideas from conformal field theory. All
these facts point to the need for new types of geometry that include
generalizations of the concept of a vector bundle or a principal
bundle. For this purpose, Brylinski has developed a theory of the
differential geometry of groupoids and gerbes, which he is applying to
the study of gauge groups, moduli spaces of vector bundles, Quillen
line bundles, and the space of knots. Although the basic concepts he
employs are of an abstract nature, they can often lead to concrete
formulas. For instance, he has obtained a concrete description of
Quillen metrics on some geometric determinant line bundles connected
with line bundles over Riemann surfaces. This research is expected to
result in a better understanding of the geometric underpinnings of
mathematical physics.
***